Symposium Support: Combining experiments with modeling and computational methods to study animal locomotion (Charleston, January 3-7, 2012)

The goal of the symposium and associated workshop at the 2012 Meeting of the Society of Integrative and Comparative Biology is to encourage investigators in organismal biology to use recent computational advances in fluid-structure interaction problems, stochastic modeling, and complex fluids and materials to answer fundamental questions in ecomechanics, functional morphology, and comparative physiology. A goal of this meeting is to attract junior investigators to these types of problems, and this is particularly timely given the new NSF postdoctoral fellowship on the “Intersections of Biology and Mathematical and Physical Sciences.”

Recent advances in computational methods have made realistic large-scale simulations of animal locomotion possible. This has resulted in numerous mathematical and computational studies of locomotion with the purpose of improving the design of micro-air and underwater vehicles, motivating the development of improved numerical methods, and enhancing our understanding of stability and maneuverability. How such mathematical studies can improve our understanding of organisms in the context of their environment and physiology remains relatively unexplored. For example, nature has evolved a wide variety of fascinating mechanisms of locomotion that exploit the properties of complex materials and fluids. Only recently have researchers been able to use mathematical and computational tools to rigorously compare the relative advantages and disadvantages of these forms of locomotion in different environments. Similarly, advances in computational physiology now allow investigators to explore how changes at the molecular and cellular levels could lead to significant changes in performance at the level of the organism.

The intent of the symposium will be to highlight recent examples of how computational, mathematical, and experimental tools can be combined to ultimately answer some of questions posed in one of the five grand challenges in organismal biology: “Integrating living and physical systems.” One emphasis of the symposium will be to illustrate the synergy between modeling, experiments, and simulation in studies of animal locomotion. Another emphasis of the symposium will be to highlight mathematical models that combine multiple levels of biological organization to understand how small changes in tissue physics can result in large changes in performance at the organismal level. The purpose of the workshop is to facilitate discussions about effective training of students and the professional development of junior faculty who are working in an explicitly interdisciplinary context of biology, mathematics, theory, and simulation.